Low Dimensional Dynamics

Abstract for proposal DMS-0555463:

This project investigates aspects of low dimensional dynamical
systems. The study of such transformations, especially area
preserving ones, has a long history going back to Poincare and
G. D. Birkhoff. In particular the project considers smooth group
actions on surfaces and the relation between the algebraic properties
of the group and the dynamics the action exhibits. A related question
addressed by this proposal is the question of the existence of global
fixed points for two-dimensional dynamical systems and how this
relates to the algebraic properties of the system.

This project investigates aspects of dynamical systems on
surfaces. There are numerous applications of results in this area to
broader fields of science, especially to classical mechanics and more
modern chaos theory. The novelty of the proposed research is that it
addresses the relationship between the algebraic nature of dynamical
systems called ``group actions'' and the geometric or topological
behavior they exhibit. Anticipated results from this proposal will
advance our knowledge of dynamical systems and will explore new
relationships between dynamics and algebra.